Improvement of Psychology Labs

9452125 VanderWeele The proposed project involves an improvement of laboratory opportunities for courses in psychology at the institution. The college has a diverse student body among whom the sciences, particularly psychology, are popular majors, with about half of graduates in psychology and psychobiology going on to graduate or professional school. The courses affected by the project include physiological psychology, learning, motivation and emotion, psychophysiology, and experimental psychology. In particular, the project has allowed the development of a student laboratory to accompany the psychophysiology lecture course, and the expansion of lab exercises in learning, motivation and emotion, and physiological psychology. Equipment primarily includes four-channel polygraphs, micro-computers, video cameras, open field and operant chambers, and stereotaxic instruments.